The Nanotechnology Research and Analysis Study through the Library of Congress

This Interagency Agreement ("IA") provides that the Natinoal Science Foundation Directorate for Engineering (NSF) will order services from the Library of Congress Federal Research Program, which is administered by the Library of Congress Federal Research Divison (LOC/FRD), to fulfill NSF's requirement for research reports, translations, and analytical studies.